Tohono O'odham Community College T-CUP Planning Proposal

The major purpose of this planning grant is to conduct an assessment of Tohono
O'odham Community College's STEM curriculum and infrastructure in order to
develop an institutional STEM action-plan that will be used as the basis for a full
TCUP grant to be submitted by May 2004. Part of this major purpose will be to
work with all of the college's stakeholders in order to develop partnerships that
will help the college effectively serve all eleven of the Nation's districts. This will
result in an effective distance education and Asynchronous/Synchronous
Learning Environment strategy that allows the college to serve all eleven of the
Nation's districts with STEM curriculum and the possibility to graduate using a
place-based education strategy. The final plan will also include the development
of assessment instruments designed to determine the effectiveness of the
college's STEM instructional programs and the development of tracking
methodologies designed to track college graduates that transfer to 4-year
colleges and universities.